Synthesis of New Organic Materials: Ferromagnetic Organic Metals, Cyanovinyl Acceptors and Oxydonors

This work will complete the development of molecules which are designed to be molecular precursors to ferromagnetic organic metals (FOM). The neutral donors are expected to be trimethylene methanes and to retain this character once incorporated into stacks in the solid state. Synthetic precursors to HTTM and TDMT will also be diverted to prepare quinodimethanoid donors with a sulfur periphery; the latter, in analogy to bisethylenedithio tetrathiafulvalene, are expected to give rise to organic superocnductors. Studies on the physical properties of new electron acceptors based on multi- tricyanovinyl substituted benzenes will be continued and a trigonal, nonacyano-1,3,5-trivinylbenzene. Syntheses of oxygen analogs of TTF and ET as well as a quinodimethanoid donor are proposed in order to test if these lighter analogs will exhibit higher superconductor transition temperatures in their salts with various anions. Once prepared the solids will have their physical properties determined using the latest developments in experimental condensed matter physics.